Parallelization of Scheduling Algorithms

Static scheduling utilizes the knowledge of problem characteristics to reach a global optimal, or near optimal, solution. Although these scheduling algorithms apply to parallel programs, the algorithms themselves are sequential, and are executed on a single processor system. The memory and speed of a single processor limits the size of the graph that can be handled. Using multiprocessors to schedule tasks to multiprocessors is a natural solution to solve these problems. In fact, a scalable scheduler is not feasible without parallelizing the scheduling algorithm and running it on a parallel computer. There are two major data domains in a scheduling algorithm, the source domain and the target domain. The source domain is the macro-dataflow graph; the target domain is the schedule for target processors. Two approaches are proposed, the vertical scheme and the horizontal scheme. The advantages and disadvantages of the two approaches will be studied. This research has already accomplished the primary stage. Two parallel scheduling algorithms have been developed, vertical parallel MCP (VPMCP) and horizontal parallel MCP (HPMCP). New parallel scheduling algorithms will be developed. An incremental parallel scheduling is also proposed for applications with dynamic and unpredictable features. The goal of this project is to investigate this approach and evaluate its performance for some important applications, and to integrate these results into a tool-set that will provide support for scheduling of dynamic and irregular problems. ***